Doctoral Dissertation Research: Phylogeny, Classification and Biodiversity of Robber Flies (Diptera: Asilidae) with Special Reference to Leptogastrinae

The study of biological diversity has immense scientific and social
value, especially today as biodiversity is under serious threat. This
dissertation project deals with the investigation of a group of insects
that, with approximately 7,000 described species world-wide, is one of
the most species-rich families of true flies. Robber flies (Asilidae)
are easily recognized and play an important role as insect predators.
Although many scientific publications deal with these flies,
evolutionary relationships of the species remain obscure. This study
focuses on species of the subfamily Leptogastrinae, currently known
from 462 species. This group is distinct due to peculiar morphological
characteristics associated with a narrow body that are most probably
adaptations to a life among grasses. Many other robber-fly species
inhabit prairies and grasslands as well, but lack such a distinctive
suite of similar morphological features. This project enhances the
knowledge about robber flies by (1) presenting well-corroborated
hypotheses of the evolutionary relationships of species of robber
flies, (2) providing species descriptions and identification keys for
species of the subfamily Leptogastrinae, and (3) analyzing the
distribution and species richness of species of Leptogastrinae with
respect to biodiversity hotspots sensu Conservation International. The
findings will allow a discussion of character evolution with respect to
habitat preferences of all robber flies, emphasizing grass-inhabiting
species and comparing them to species of Leptogastrinae using both
morphological characters of the adult flies and DNA sequences.
Fieldwork is conducted in South east Asia in order to collect species
of robber flies for the analyses, as this region hosts the least-known
and sampled fauna. Two major natural history museums housing specimens
of Asilidae from South east Asia - London, UK, and Amsterdam, The
Netherlands - are visited to examine historical specimens of
outstanding importance for identification of freshly collected
material.

Among many target groups used for studies addressing the biodiversity
crisis, insects are always under represented. This dissertation project
incorporates one of the most species-rich fly groups into analyses of
biological diversity. The dissemination of scientific knowledge to all
parts of the world is of immense importance. The species descriptions
and identification keys assembled in this project are being published
in required printed format in scientific journals as well as on the
world wide web as integrative biodiversity databases, therefore making
this knowledge available for world-wide audiences including
entomologists and conservation biologists. An undergraduate student is
trained in revisionary taxonomy during a summer internship under the
NSF-funded Research Experience for Undergraduates program in order to
educate a future scientist in methods of identifying, describing, and
illustrating species and publishing the results. The extensive
NSF-funded research project Assembling the Tree of Life - True Flies
will directly benefit from the proposed study of the evolutionary
relationships of Asilidae.